Microscopic Theory of Nuclear and Hypernuclear Structure and Reactions

*** 9732634 Halderson Projects are proposed in two areas of nuclear theory. The first area concerns the interaction of nuclei with medium energy electrons, mesons, and nucleons. This investigation provides information on the interaction mechanism between these probes and the constituent nucleons, the behavior and decay processes of nuclei at high excitation energy, and the distribution of nucleons within nuclei. The second area of research is hypernuclear physics. Hypernuclei contain at least one baryon with non-zero strangeness or charm. Although their lifetimes are very short, hypernuclei provide a laboratory for determining the interaction of strange or charmed baryons with nucleons and with each other. These investigations will provide basic information on the strong interaction at low energies. In addition, an understanding of these interactions will provide predictions on the existence of exotic nuclei with few or no protons and the strangeness content of neutron stars. ***